Conference on Bioinorganic Copper Chemistry, The Johns Hopkins University, Baltimore, Maryland, August 3-7, 1991

This award from the Inorganic, Bioinorganic and Organometallic Chemistry Program is for partial support of a conference on bioinorganic copper chemistry. The funds will be used to reduce the registration fee of graduate student and post- doctoral to one half that of other conferees. This conference will bring together participants from the inorganic and biological chemistry communities to discuss the most recent discoveries concerning the chemistry of copper in biological systems. Attendence of such conferences by junior researchers can provide significant enhancement to their education and a boost to their careers as independent scientists.